Research Experiences for Undergraduates at Baylor University

Dr. William H. Scouten and other members of the Chemistry Department of Baylor University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, twelve undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range the traditional areas of chemistry - analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the involvement of historically black and hispanic campuses as well as predominately minority junior colleges.